Oceanographic Instrumentation

9819693
Deering
This award to University of Delaware will provide instrumentation for oceanographic research for use on R/V Cape Henlopen, a research vessel operated by university as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired includes a fluorometer for studies of ocean chemistry and three sets of slip rings for operating instruments over conducting cable. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly along the Middle Atlantic coast, in 1999 and future years.
***